Functional Analysis of Miniparamyosin in vivo

9604546 Bernstein The goal of this project is to determine the function of miniparamyosin, a thick filament protein that is likely to be important in myofibril assembly and muscle contraction. This protein was discovered a few years ago in Dr. Bernstein's laboratory. The N-terminal quarter of this protein is unique, while the remainder is identical to the C- terminal half of the thick filament core protein paramyosin. From the work of others, miniparamyosin is now known to be a component of many invertebrate muscles, and its presence in a number of phyla suggests that it serves an important role in myofibril assembly and/or function. In situ hybridization studies showed that miniparamyosin mRNA is expressed in only a subset of adult Drosophila muscle cell types. Antibody studies from other laboratories have shown that miniparamyosin is a component of the thick filament and that it has a different localization pattern in indirect flight muscles and tubular muscles of the adult. The overall aim of this project is to directly test the role of miniparamyosin in muscle structure and function and its interplay with other elements of the thick filament in vivo. The project will employ transgenic, ultrastructural, and physiological approaches designed to directly test the function of this protein in vivo in Drosophila melanogaster. The specific objectives for the grant period are as follows: 1, to isolate and/or construct Drosophila strains which are mutant for miniparamyosin and analyze their genetic, ultrastructural and physiological defects; 2, produce transgenic flies that express greatly increased levels of miniparamyosin in their indirect flight muscles. By analyzing the ultrastructure of such muscles, it will be determined whether thick filament length, diameter or electron density are affected as a result of changing the ratio of this protein to that of myosin heavy chain and paramyosin. Antibodies against miniparamyosin will be used to define whethe r over-expression results in protein relocalization within the thick filament. It will also be determined how over-expression of miniparamyosin in flight muscles affects the biophysical properties of these muscles; 3, determine whether the amount of paramyosin influences the accumulation and localization of miniparamyosin within thick filaments. This will be accomplished by over-expression of paramyosin in the indirect flight muscles in lines producing normal and elevated levels of miniparamyosin. This goal is based on observations that the amount of paramyosin correlates with the level and pattern of miniparamyosin accumulation. The subcellular machinery of muscle cells that allows them to carry out their contractile function consists of two sets of complex filaments, termed thick and thin filaments, which are arranged in parallel arrays within a larger structure termed the myofibril. In fully "relaxed" muscles, these parallel arrays only partially overlap each other Contraction occurs when the thick and thin filaments slide over each other in a coordinated manner to increase the extent of overlap, thereby shortening the myofibrils (and thus shortening the cell), a process which requires hydrolysis of ATP. The "motor" which transduces the energy of hydrolysis of ATP into movement is myosin, the major component of the thick filaments. In order to fully understand how muscle cells function, it is necessary to understand the fine molecular structure of the myofibril. Recently, a new protein, termed miniparamyosin, has been discovered as a component of thick filaments in a model invertebrate, the fruit fly Drosophila melanogaster. This project will explore the role that this newly-discovered thick filament protein plays in the assembly and function of myofibrils, and will undoubtedly lead to new insights into those processes. ***